Microchemical Analysis of Developing Cell Populations

This award is made as the starter grant increment of Dr. Curtis Monnig's Postdoctoral Fellowship in Chemistry Award in support of his research at the University of California at Riverside. The main thrust of Dr. Monnig's research is the the development of analytical techniques and instrumentation for quantitative analysis of bioactive molecules in small quantities, e.g., in individual cells. Capillary electrophoresis and microcapillary liquid chromatography will be coupled with high sensitivity detectors (laser-induced fluorescence, mass spectrometry) to obtain qualitative and quantitative information about the chemical constituents of these samples. This instrumentation will be used to identify and map chemical changes in developing cell populations. The resulting cytochemical maps will be used to catalog the steps of chemical differentiation at the earliest stages of cell development and to identify suspected morphogenic substances.